Innovative Finite Element Methods for Modeling Multiphase Contaminant Flows in Porous Media

Ewing
9972147
Complex physical phenomena involving multiphase contaminant
flows and transport in porous media are often modeled by coupled
systems of nonlinear partial differential equations. Recent
advances in computational capabilities (particularly with the
advent of new parallel architectures) have greatly expanded the
potential for incorporating more physics into the differential
equations. While such changes to the model can increase its
ability to represent accurately the underlying real process, this
must be verified in each phase of the modeling process utilizing
physical, mathematical, numerical, and computational concepts.
The investigator and his colleague develop analytical and
numerical methods for the differential equations describing
multiphase contaminant flows and transport in porous media. The
first objective is a theoretical analysis of these nonlinear
partial differential equations. Special topics to be treated are
regularity, stability, and bifurcation phenomena. The second
objective is to study and develop finite element methods capable
of capturing sharp solution fronts, producing accurate fluid
velocities, conserving mass, giving high-order approximations in
time, and being efficiently adapted in local grid refinement.
Here the investigators develop finite element methods for
treating systems of nonlinear transport-diffusion equations via
concepts of Eulerian-Lagrangian localized adjoint methods and
mixed finite element methods coupled with high-order
time-stepping procedures. The third objective is to develop
efficient parallelizable iterative solution techniques for the
resulting discrete problems.
This project continues ongoing development of accurate
numerical techniques, efficient computational codes, and
supporting mathematical analysis for modeling of multiphase flows
and transport in groundwater hydrology that has applications in
design of remediation and clean-up technologies. The development
of improved methods for assessing groundwater contamination by
hazardous wastes has become increasingly important. Indeed,
groundwater supplies are increasingly threatened by organic,
inorganic, and radioactive contaminants introduced into the
environment by improper disposal or accidental release. Estimates
of remediation costs at U.S. government sites alone range into
the hundreds of billions of dollars. Protecting the quality of
groundwater supplies is a grand challenge problem of broad
societal importance. There are also a number of industrial
applications of the proposed research. The production and
managment of oil reservoirs are governed by equations and
technologies that are nearly identical to those exploited in
groundwater hydrology. The manufacture of high quality fiber
reinforced plastic composites for automotive and aerospace
application is controlled by technology similar to that studied
in this project. Design of semiconductors uses equations very
analogous to those for groundwater transport. In these areas,
technology transfer can be easily carried out. In particular,
because of their intellectual content and strong links to
industry, this variety of problems provides an excellent vehicle
for students to learn techniques in applied and computational
mathematics.